Improving Education in Statistics for Engineers

This project will support the establishment of a statistical teaching laboratory. It is being funded under the Instrumentation and Laboratory Improvement (ILI) Program, which has the goal of supporting projects to develop new or improved instrument-based undergraduate laboratory courses in science, mathematics, or engineering. The Instrumentation and Laboratory Improvement Program provides matching support for the instrumentation necessary to implement undergraduate instructional improvements at U.S. colleges and universities. In particular, the main objective of this project is to enhance the teaching of statistics to undergraduate engineering students. The statistical teaching laboratory will be configured so that demonstrations of simulations and statistical engineering principles can be brought to students and so that students can use the laboratory to perform exercises, simulations, and otherwise interact with computer programs designed to demonstrate statistical concepts. The primary courses to be affected are introductory engineering statistics, introductory probability and statistics, and statistics for quality and productivity improvement.